Effects of Dynamic Compressive Strain on Subsequent Plastic Flow Behavior of Metals

This research will evaluate prestrain effects on constitutive equations for plastic flow behavior of materials. This research investigation determines the effects of dynamic compressive pre-strain on the subsequent plastic flow behavior of metals. Experimental studies will be carried out in two fcc metals (6061-T6 aluminum, a fairly rate insensitive materials, and annealed OFHC copper, a rate sensitive materials) to understand the micro-structural changes that are associated with dynamic compressive pre-strain by means of plate impact and split Hopkinson bar (SHB) experiments. The results will be coupled to a state variable based constitutive model for describing the observed plastic flow behaviors in these two materials.